An Optical Investigation of the Genesis of Solar Activity

Abstract 9615073 Rust The Flare Genesis Experiment will use a 80 cm telescope to make images and magnetograms of unprecedented resolution (0.2 arcsec) of the solar photosphere and chromosphere while flying from a high altitude, long duration balloon around the Antarctic continent. The purpose of the experiment is to further understanding on how the energy stored in the sun's magnetic fields is converted to energetic events such as flares and coronal mass ejections. This experiment can only be done from an Antarctic balloon (short of building a large, special purpose space craft) because continual viewing of the sun is necessary for periods much exceeding a day, which can only be achieved from polar sites, and in order to achieve the required resolution the telescope must be above most of the atmosphere. This project is jointly sponsored by NSF, NASA and the Air Force. ***